Revitalizing Quantitative Analysis

This project is introducing principles of solution chemistry, including acid/base equilibria, precipitation, oxidation/reduction and complexation reactions, in the context of solving real-world bioanalytical and environmental problems, and by integrating instrumental methods of analysis into a new course. To implement the new course, the project is purchasing two automated CZE systems and four membrane liquid chromatography systems. The new course is based on applications modules. All activities including lectures and quantitative problem-solving sections focus initially on two laboratory-based modules. One requires students to develop and implement a strategy for assessing water quality in a river near campus. The other requires students to develop and optimize a chromatographic method to isolate horse cytochrome c from impurities, develop a spectrophotometric method to assess the success of their purification method, examine the electrochemical properties of the purified protein, and separate a mixture of cytochrome c obtained from different animals. The experiments incorporate two recently developed separations techniques: capillary zone electrophoresis (CZE) and moderate-pressure, membrane-based liquid chromatography.